Using Computer Technology and Multimedia Materials to Develop an Integrated Systems Approach to the Earth Sciences

A series of computer modules will be developed to simulate the physical, chemical, and biological processes active in Earth systems in ways not possible with traditional instructional methods. These computer models not only will supplement classroom instruction, they will help students visualize dynamic processes that occur over geologic time, three dimensional structures, and geologic phenomena on scales ranging from "microns to mountains". The goals of this multi-media project are to develop curriculum materials that: 1) focus on the physical, chemical, and biological processes at work in Earth systems, 2) incorporate multiple learning approaches (hands-on activities, visual aids, three dimensional models, and simulations of systems), and 3) contain relevant and integrative problem solving . These materials will be part of an integrated curriculum package in which the computer modules will enhance the learning process. This project is a collaborative effort sponsored by the American Geophysical Union, with field testing of the materials at the University of Arizona, Glendale Community College, and other institutional settings. The project will affect 2000 liberal arts and education majors per year at these institutions. A primary focus of this project will be the development of new instructional materials that will provide future teachers with a solid knowledge base as well as an appreciation for the conduct of scientific inquiry. A CD-ROM of the computer exercises, laboratory manual, and instructor's manual will be developed for national dissemination.